Phylogenetic Analyses of the Evolution of Continuous Characters

Closely related species often resemble each other for many characteristics. Statistical analyses of cross-species (comparative) data sets cannot assume that species data points are statistically independent or drawn from a common underlying distribution. The former leads to uncertainties about degrees of freedom for hypothesis testing; the latter may lead to problems of estimation. Several authors have proposed analytical methods that attempt to solve these problems by mapping characters of ecological or physiological interest on a "known" phylogeny, estimated from independent information (e.g., DNA sequences). Computer simulation techniques will be used to investigate the statistical properties of several such methods. First, the Type I error rates, power, and estimation abilities of two new methods for analyzing correlated evolution of continuous traits, one based on autocorrelation models (Cheverud et al., 1985; Gittleman and Kot, 1990) and the other on pedigree models from quantitative genetics (Lynch, 1991), will be compared to those previously studied (non-phylogenetic, independent contrasts, minimum evolution). Second, a simulation approach to phylogenetic analysis of covariance will be developed. Third, computer programs will be developed that (1) simulate data phylogenetically under alternative models of evolutionary change, (2) perform analysis of covariance on the simulated data to obtain null distributions of F-statistics, and (3) allow graphically-based data entry and transformation of tree structure and character data. %%% Comparative analyses of phylogentic relationships is an important interdisciplinary approach linking studies in phylogency with ecology, behavior and physiology. This proposal focuses on statistical techniques of comparative analysis and will validate and further develop comparative methods essential to this approach.